AREADNE 2012 Conference, June 21-24, 2012, at the Nomikos Conference Centre, in Santorini, Greece.

1205468
Pezaris

This project will support AREADNE 2012 Research in Encoding and Decoding of Neural Ensembles, to be held 21-24 June 2012, at the Nomikos Conference Centre, in Santorini, Greece. This will be the fourth conference in the biennial AREADNE series that provides unparalleled opportunities for US students and scientists studying neural ensembles to interact with their international peers and develop long-term professional relationships.

The AREADNE Conference series serves an important role, providing a unique forum in the developing field of neural ensembles where investigators from a wide variety of subfields can exchange ideas and interact in an intensive, focused environment. Under the leadership of the two co-founders who serve as co-chairs, the AREADNE Organizing Committee has successfully run the conference in 2006, 2008, and 2010; the 2012 session will be the fourth. Many novel mechanisms are employed to ensure complete engagement from the speakers and attendees that result not only in successful, invigorating meetings, but in a strengthening of the field. Many cutting-edge and provocative results have been premiered at the AREADNE Conferences this far, a pattern that is expected to continue in the future.

About half of the attendees from previous meetings have been from the United States, and half from Europe and the Eastern Mediterranean. Across all attendees, one-third are students, one third post-docs or junior faculty, and the remainder senior faculty. Speakers are selected from the world experts in the field, and include one-third women, reflective of the general attendance. The Organizing Committee consists of systems neuroscientists with wide and varied backgrounds. Hybridization within the committee is reflected in the range of invited speakers and thus at the conference itself where cross-disciplinary discussions among attendees, rather than being exceptional, are the norm. Feedback forms from attendees are overwhelmingly positive, including specifically on the aspect of discussion and interaction. The conference proceedings are provided to attendees in printed form and on CD-ROM, and shortly after the end of each meeting, are published on the conference web site. In the 24 months ending on 1 October 2011, more than 3,000 copies have been downloaded from the web site, demonstrating a very broad impact.